SGER: Generalizations of Godel's Incompleteness Theorem and An Investigation of Self-Justifying Proof Systems

The project is concerned with, on the one hand, findings new generalizations of Godel's Incompleteness Theorem and, on the other hand, finding axiom systems that evade the theorem by prosseing some type of ability to verify their own consistency.